Incremental Program Development and Analysis Techniques

The project addresses problems in the design and implementation of incremental program development and analysis techniques. Two topics are under investigation: l. Automatic generation of program analyzers. A framework that supports the effective development of program analyzers will be developed. These analyzers can be specified by a formal semantic definition derived from a standard denotational language definition. 2. Incremental modification and analysis of attribute grammars. The goal is to develop techniques that allow attributes and attribute dependencies to be interactively added or deleted, with grammar analyses and evaluators incrementally updated. This will support attribute grammar development and also allow new approaches that enhance the efficiency and flexibility of attribute grammars.